Magnetic Colloids and Surfactant Modified Interfaces

They will apply column fractionation to magnetic colloids to produce multi-gram quantities of ferrite `nanoparticles' of well defined crystallinity, morphology, defect content and norrow size distribution and perform polarized neutron diffraction experiments to detect, locate and charaterize magnetically anomalous regions within the particles. In addition, polarized neutron reflectometry will be used to examine the magnetization depth profile of ferrite films. Particulate ordering in these colloids will also be investigated.